Strength Optimization of Material Systems Containing Cylindrically Shaped Coated Fibers

The purpose of the research to be performed under this SGER award is to verify experimentally that interface coatings of optimum stiffness applied to reinforcing fibers can significantly improve the performance of composites by reducing, or eliminating, cross- ply cracking. New detailed information on the interaction between a fiber, the matrix and the interphase regions of composites will be generated. This will provide a fundamental understanding of the influence of physically controllable micro- parameters on fiber reinforced composite materials, which will aid in the optimal design of this class of materials.